III: Small: Labeling Massive Data from Noisy, Incomplete and Crowdsourced Annotations

Alongside the prosperity of deep learning, the demand for reliably labeled data is unprecedentedly high. Label acquisition is a highly nontrivial task---data labeling is tedious, labor-intensive, and prone to mistakes. Crowdsourcing techniques that integrate annotations from multiple annotators to improve accuracy have been essential for labeling large-scale data. However, existing crowdsourcing techniques face pressing challenges such as heavy workload of annotators, high computational cost, and a lack of strong theoretical guarantees. This project will develop a series of analytical and computational tools for accurately labeling massive datasets from noisy, incomplete, and crowdsourced annotations---with provable guarantees. Leveraging advanced nonnegative matrix factorization theory, this project will offer solutions that are efficient and effective under critical conditions. The outcomes are expected to have broad and substantial positive impacts on the currently label-hungry artificial intelligence industry and the data annotation workforce. For example, the algorithms designed for handling structured data (e.g., speech) will largely benefit timely applications, e.g., intelligent assistants such as Alexa and Siri. The ability of reliably working under largely incomplete data will help design new data dispatch schemes leading to significantly reduced annotator workload. The project will also offer many training opportunities for undergraduate students, with an emphasis on engaging those from underrepresented groups.

In terms of theory and methods, many aspects of crowdsourced data labeling (e.g., sample complexity, noise robustness, and identifiability of the underlying statistical model) are still poorly understood. This project will provide a suite of theoretical and computational tools that advance these aspects. To be specific, the first thrust will build up a coupled nonnegative matrix factorization (CNMF) framework that bridges the classic Dawid-Skene model for crowdsourcing and advanced nonnegative factor analysis theories. This will establish firm theoretical foundations for crowdsourcing under critical conditions, and lead to theory-backed algorithms to attain substantially improved sample complexity and noise/incomplete data robustness. The second thrust exploits domain-dependent knowledge, e.g., data structure and annotator dependence, to come up with situation-aware crowdsourcing techniques for enhanced performance. The third thrust designs stochastic optimization strategies to provide scalable implementations for the CNMF framework, and evaluates the proposed methods over a variety of real-world applications. The analytical and computational tools developed in this project will provide strong provable guarantees and refreshing algorithmic solutions for long-standing challenges in crowdsourced data labeling. In addition, the CNMF theory and algorithms are exciting new directions for computational linear algebra, whose impacts can go well beyond this project.